Poroelastic Transport Models for Large Arteries

9410571 Simon The research proposed in this application is the study of poroelastic models based on experimental data. The arterial wall is viewed as a deformable structure of solid components that is saturated by a mobile tissue fluid and contains mobile species. A finite strain porohyperelastic model will include history- dependent finite deformation, stress, and transural tissue fluid flow. Finite strain isotropic and anisotropic porohyperelastic constitutive laws will be developed based on a hyperelastic strain energy density function and strain dependent permeability that will be quantified using experimental data for aortic tissue. A two layer model will be developed to quantify the hydraulic resistivity and transport properties of the arterial intima and media. Finite element models based on the nonlinear porohyperelastic theory and initial linear poroelastic transport theory will be developed in order to accurately represent the complex structure and fluid-molecular transport in the arterial wall. The research will provide the quantitative methodology necessary for a better understanding of the physiology and mechanics of the normal arterial wall as well as for consideration of abnormal states and arterial diseases such as atherosclerosis. ***